RUI: Detectors to Explore Quarks and Leptons

This project is designed to integrate important contributions to research
with an educational experience for promising undergraduate students. The
James Madison University Particle and Nuclear Physics Group, consisting of
Dr. Giovanetti, Dr. Niculescu, and a group of undergraduate students, is
conducting research in the area of Intermediate Energy Nuclear Physics at
Thomas Jefferson National Accelerator Facility, TJNAF, and at the Paul
Scherrer Institute, PSI. The members of the group are actively involved in
the ongoing research at TJNAF and are contributing by designing and testing
equipment, participating in data taking and performing data analysis. This
group is also a key collaborator in an experiment underway at PSI (Muon
Lifetime Experiment).

The project will explore the rich structure of particles like the proton
and the neutron, which are the basic building blocks of the atomic nucleus.
It is widely held that protons and neutrons are built out of three quarks.
These quarks are viewed as fundamental particles that have simple
properties. Gluonic forces hold the quarks together. The basic nature of
the forces are believed to be understood. However there is not yet a
complete picture of the three-quark system. Studies that probe the nature
of the proton, and the neutron will clarify the important ingredients, test
the validity of models and approximations, and perhaps discover new
features that require a closer look at the underlying theory.

Improvements in technology and progress in theoretical physics have created
the opportunity to improve our knowledge of the strength of another basic
interaction, the weak force. By measuring the lifetime of the muon the
Fermi coupling constant can be extracted. This constant determines the
strength of the weak force in the same manner as electric charge determines
the strength of the electromagnetic force. The goal is to improve this
measured value to one part per million.

***************************************************

--
Giovanetti, Kevin L
[email]